Control of Flood and Salinity Intrusion Caused by Sea Level Rise

The potential impacts of sea level rise on estuarine environments, especially the threat of saline intrusion, will be examined by mathematically simulating the time-varying tidal height, currents and salinity. With measurements from a selected estuary parametric studies will be conducted on projected sea level rise, stream flow, storm surge, channel roughness, and change in cross- section profile in order to garner an in-depth understanding of estuarine processes. The study will examine present conditions versus possible future sea levels, and with and without some control measures. The results of this work will be applicable to other estuaries and used in estuarine management and river basin planning.